Weak Singularities and Transport for Incompressible Flows of an Ideal Fluid

9876947
Vishik

The principal investigator will study the mathematical problems of fluid
motion. Methods of Littlewood-Paley theory and wavelets will be used to
study weak singularities for the incompressible flows of an ideal fluid. The
basic nonstationary problem for the Euler equations will be investigated in
function classes with, generally, essentially unbounded vorticity. He will
address the problem of linear vector transport by flows that are less than
regular. These aspects of transport theory are directly applicable to
questions of existence and uniqueness for the Euler equations.

The mathematical theory of fluid motion is fundamental both for
applications in meteorology, geophysics, astrophysics and within
mathematics itself. Most of the flows in nature such as ocean currents, or
hurricanes, or the motion of matter in a galaxy, are highly irregular. The
origin and evolution of singular structures such as rapid oscillations of a
flow are still not well understood. In addition to this, numerical modelling
of irregular flows is limited by instabilities due to the small scale
structures constantly produced by the flow. The PI will investigate two
related aspects of this subject. First, the basic mathematical nature of the
flows with singularities. Second, transport of quantities such as the
magnetic field by irregular flows in the solar photosphere.